CAREER: Algorithms for Efficient Bandwidth Utilization in the Internet

There is a growing scientific community working to provide solid
theoretical and algorithmic foundations for the study of communication
networks. This project furthers this goal through a combination of
research and education. In particular, it addresses theoretical and
algorithmic issues that arise in a central area of networking: the
efficient utilization of communication bandwidth. The research
component of this project addresses several different approaches for
the succinct representation of information in communication networks.
This includes the investigation of (a) the efficient use of
communication bits to provide accountability in the Internet (which is
a means of combating cyber-terrorism), (b) new approaches to
compression that arise in new communication technologies, and (c)
minimizing the amount of control information required to make
communication robust with respect to network faults. The integrated
educational objectives of this project include both graduate student
collaboration and curriculum development. The former consists of
student involvement with the research component of the project, as
well as organization of summer schools and workshops. The later
includes the incorporation of networking topics into a graduate level
algorithms course, as well as the development of a new advanced
graduate course addressing the algorithmic and theoretical challenges
and achievements in the area of networking.

For the research question of providing accountability in the Internet,
this project studies the IP Traceback problem: given a stream of
packets arriving at a node of the Internet, determine the source of
those packets. This is an important tool for dealing with denial of
service attacks, since accountability discourages such attacks and
provides an automated mechanism for halting attacks in progress. This
project studies probabilistic packet marking schemes for this problem,
with the goal of determining the optimal tradeoffs between the number
of marking bits used per packet, the number of packets required to
reconstruct the source information, and the number of simultaneous
sources of attack that can be dealt with. A number of new
technologies also present us with entirely new approaches to
compression. The resulting compression problems are fundamental, but
since the motivating technologies have a short history, these problems
have not been considered previously. In this project, we consider
compression problems that arise from three such technologies:
asymmetric communication channels, networks that are able to multicast
information efficiently, and the compression of the World Wide Web.
Finally, we also consider reducing bandwidth utilization by minimizing
the amount of control information required to make communication
robust against faults.